Approximation Algorithms and Applications in Network Games

Large communication networks, such as the Web or the Internet, give rise to
a number of challenging algorithmic questions. Our increased dependence on
networks means that reliability and availability of the communication
infrastructure is becoming more critical than ever. This project will consider
some of the algorithmic question raised by such networks. The goal of
the project is to develop algorithms with provable performance guarantees.

The project focuses on two closely related issues. Over the last 20 years or
so, many powerful techniques have been developed for approximation algorithms.
This project focuses on developing new algorithmic techniques, and aims to
develop new techniques for approximation algorithms, and obtain large improvements
in the achievable solution quality for a number of important problems,
where the previous techniques failed.

A second goal of the project is to develop algorithmic techniques for the
distributed, and selfish environment of large networks, like the Internet.
In such settings the traditional approach of algorithm design is not
appropriate: there is no single entity that has the information or the power
to run such an algorithm. While centralized algorithms cannot be used directly
in such selfish environments, there are very strong ties with certain
algorithmic techniques and some of the central questions in algorithmic game
theory. This project considers two of these issues, cost-sharing and the
price of anarchy. The project will develop new methods for designing
cost-sharing algorithms, and understanding what environments lead to
low price of anarchy. The cost-sharing problem is closely related to the
primal dual method of approximation algorithms. Evaluating the price of
anarchy is closely related to approximation algorithms based on local search.